Fault-Tolerant 3-D Object Recognition

3-D object recognition presents a complex problem involving massive data handling capability, extraction of important features, insensitivity to noise, sensitivity to motion, all of which ideally should be done simultaneous with the action (in real time). The present effort proposed to utilize distributed associative memories, an area of neuroengineering, to provide such 3-D recognition. The (DAM'S) appear well suited for this position.